Mathematical Sciences: Singularities in Determined AnalyticPDE and Associated Qualitative Properties of Solutions

The principal investigator will study the singularities in low dimensional non-linear real analytic partial differential equations. A key feature of his approach will be the use of multivalued solutions and a geometric approach to the study of singularities. A general objective of the research will be to identify geometric invariants of partial differential equations which control singularities of solutions. This award will support research in the general area of differential geometry and global analysis. Differential geometry is the study of the relationship between the geometry of a space and analytic concepts defined on the space. Global analysis is the study of the overall geometric and topological properties of a space by piecing together local information. Applications of these areas of mathematics in other sciences include the structure of complicated molecules, liquid-gas boundaries, and the large scale structure of the universe.